Regulation of Microtubule-Based Vesicle Transport

Secretion, the formation of lysosomes, and receptor-mediated endocytosis are all mediated by intracellular packaging and transport of vesicles. Intraorganelle communication also involves the transport of vesicles. Some of these transport processes utilize nucleotide-sensitive, microtubule-binding proteins to power the vesicles movement along microtubules. The goal of this research is to investigate one of these motors, cytoplasmic dynein, which this laboratory has recently isolated from Paramecium. The vesicle and vacuole transport pathways in Paramecium have been studied extensively in this laboratory. A logical extension of the previous studies is to characterize further the motor(s) responsible for the described movements and to investigate the possibility that microtubules organized into different arrays may support movement of only certain populations of vesicles and not others. Experiments have been designed to (1) determine which direction cytoplasmic dynein moves along the microtubules in Paramecium, and (2) to produce monospecific polyclonal and monoclonal antibodies to cytoplasmic dynein to determine the location of this motor in the cell and to use as antagonists to cytoplasmic dynein activity to determine which transport functions in cells are supported by this motor. Finally, it is proposed to isolate all vesicles which bind to microtubules by nucleotide- sensitive bridges. The results of this research using Paramecium should provide new information on how normal cells direct and regulate intracellular vesicular transport.